Computers & Mathematics 1989, MIT, Cambridge, Mass. June 12-16, 1989

The 1989 Computers and Mathematics Conference is the third in a series of international conferences which focus on the use of computers as a research tool in the mathematical sciences. This award supports travel expenses for invited speakers.